CAREER: Fire impacts on forest carbon recovery in a warming world: training the next generation of Earth analysts by exploring a missing scale of observations

The number and extent of wildfires are increasing the western U.S. forests. These forests are important in regulating the amount of carbon in the atmosphere. Wildfires have reduced the amount of carbon western U.S. forests accumulate by 15-fold since the 1980s. This CAREER award will explore the critical question: is carbon recovery in burned forests changing as regional warming and consequent wildfire disturbance size increase. Innovative remote sensing using Unmanned Aerial Systems (UAS), NEON's Airborne Observatory, and the GEDI satellite will allow rapid monitoring of forest structure at very high resolution across thousands of hectares-providing a critical and often missing scale of observations. With these remote sensing data and other advances, regional to continental scale ecology can now explore large areas at very fine scales. However major impediments exist in taking full advantage of this new technology. Training to actually harness this data revolution significantly lags behind the data availability. This CAREER award will address this need through training the next generation of Earth analysts in data and compute-intensive science, cutting-edge ecosystem carbon measuring techniques, and large-team collaboration.

This award will advance fundamental understanding of how aboveground biomass recovery trajectories vary as a function of fire size and severity, drought, and conifer forest type (1984-present) across the western U.S. This research will: 1) apply emerging UAS technologies and methods to estimate tree-level aboveground biomass to then explore carbon recovery post-fire in the NEON southern Rockies domain; 2) explore fundamental drivers of carbon recovery post-disturbance across a chronosequence of fire history in conifer forests of the western U.S. using space-based observations; and 3) build a national network of over 100 ecosystem scientists, predominantly graduate students, who will be enabled to conduct data-intensive exploration of forest carbon dynamics in response to disturbance within NEON domains. Education efforts include a distributed graduate seminar taught simultaneously at five universities, open education modules delivered on Earth Lab's learning portal for Earth data science that currently reaches tens of thousands of users, and a Forest Carbon Codefest that will build collaborative efforts around key methodological advances, data coding challenges, and cloud-compute workflows. Overall this CAREER award will lead to better understanding of when forests shift from carbon sinks to carbon sources under changing fire regimes and help to train the next generation of data-capable Earth scientists.